Computer Research Equipment

Workstations will be provided for researchers at Case Western Reserve University for research in the Department of Computer Engineering and Science. This equipment is provided under the Instrumentation Grants for Research and Information Science and Engineering program. The research which the equipment is to be used will be in the area(s) of Nested Relational Database Management System, Parallelism in Logic Programs and Synthetic Query Response Construction in Realtime/Time- Constrained Databases